CSR-EHS: Techniques for Assuring the Safety and Reliability of Physical Computing Systems and Applications to Medical Devices

The project concentrates on the development of reliable physical
computing systems (PCS), a class of safety-critical embedded systems
that interact with the physical environment in significant ways via
sensors and actuators. The target application domain is medical
devices. The existing technology for PCS design does not effectively
support the development of reliable and robust medical device systems
as they become more complex. The new techniques will also have
applicability to other domains such as avionic systems, manufacturing,
and automotive controllers.

The project advances formal modeling and model-driven validation
techniques to make it possible to develop highly dependable PCS. The
approach is to extend hybrid systems modeling to PCS by explicitly
modeling failures. These models are then used for test generation and
run-time monitoring and checking. The project will also lay
foundations for a rigorous certification process of such systems by
developing static and dynamic dependability metrics. Finally, an open
platform is being developed for creation and sharing of the artifacts
of requirements, designs, models, test suites for generic infusion
pumps (GIP). The platform will foster a community interested in highly
dependable medical devices and ultimately enable transition of the
technology into practice. A significant part of the project is the
collaboration with the developers of Plug-and-Play (PnP) for operating
room of the future.

In the short term, the project will improve the quality of infusion
pumps and other computer-controlled medical devices, while long term
impact will be a wider use of formal approaches in the
engineering of embedded systems.